Workshops: Evaluation and Retrofit of Masonry Structures/ U.S. - Italy

The deterioration of masonry structures throughout the country is becoming a major problem of concern for the general public. To extend the life of the building or to upgrade it, economical techniques to repair and/or strengthen the building are required. This workshop is a joint effort between Italian and United States engineers to exchange ideas, methods, research data, and related experiences on the subject of evaluation and strengthening of masonry buildings of all types. The Italians have had a long history of maintaining masonry structures of all types and engineers in the United States can benefit from that experience. The proceedings produced by the workshop will be very useful to engineers and architects in the United States because it will convey the most recent information on the evaluation and strengthening of masonry structures.